The Evolution of Organizations in the Biotechnology Industry

Population ecology is a recent approach to understanding how organizations are born, grow, and die. Population ecologists use the term "niche" to refer to combinations of resources that allow specific organizational forms to prosper. As resources ebb and flow, new forms are created while old forms die. The present research will focus on the exchange relations through which organizations obtain resources. The researchers will model the dynamics of niche structures by analyzing how the organizational networks that define the exchange structure of an organizational community change over time. The organizational community to be studied consists of U.S. commercial biotechnology firms. This is a fruitful arena for studying organizational niches since the industry's rapid development has spawned numerous new resources for organizing as well as a variety of new organizational forms. Longitudinal data will be collected on the structure and performance of organizations engaged in commercial biotechnology as well as on the relationships among the organizations. The data will be analyzed to specify how patterns of interorganizational ties have influenced the structure and life chances of biotechnology firms. The results will lead to a theoretical sharpening of the "niche" idea, as well as enhance or understanding of organizational dynamics.